Interior Point Methods in Optimization

Methods developed by using higher order Taylor polynomial, as well as those obtained by taking a generalized predictor-corrector approach, will be studied for solving linear programs. Efficient methods for solving structured linear programs will be developed. Methods for finding vertex solution within the framework of interior point methods will be investigated. Approaches will be pursued to extend the research to parallel methods and to convex problems.